A Novel Process for Reactive Laser Machining of Chemical Vapor-Deposited Diamond Ceramic

Laser-induced machining is an excellent alternative to ion beams with distinct benefits including patterning by direct writing or optical projection without contact masks, higher etch rates, and enhanced surface integrity. This project investigates a substitution of ion beam with an electron beam or a laser beam. This research project will develop a fundamental understanding of laser-assisted and liquid-induced reactive machining technique by (1) performing nanosecond (ns)-laser chemical vapor-deposited(CVD)-diamond polishing and drilling experiments in various liquid media, and (2) by experimental diagnosis and theoretical modeling of laser : diamond interaction in liquid media.